Collaborative: CSR-DMSS, TM: Live Updates of Scientific Workflows

Live Updates of Scientifc Workflows

ABSTRACT
Computer systems are being applied to increasingly demanding cross disciplinary applications. The environments in which they function and the resources they manage
are gradually more diverse, distributed and dynamic. This is particularly observed for
biomedical applications where the need for flexible, dynamic, data intensive computing
functionalities are substancially critical. This revolution of modern medicine requires
novel and efficient approaches to support resource integration and scientific workflows
(SWF) that capture, analyze, retrieve, integrate, and produce molecular information
including biological specimens derived from tissue, cells, or blood combined with
medical records or clinical trial data. Such workflows are increasingly used in e-science
discovery and are characterized by frequent changes that are part of the scientific
discovery process. The research develops a uniform approach to support live updates of
scientific workflows accessing distributed resources. The goal of live updates is to allow
continuous execution in the presence of changes. The research supports updates of
both the structure and nature of SWFs processes and the data they access and create
(produce and consume). The research divides the live update problem for SWFs into four
main technical aims: software update, persistent storage update, workflow update, and
evaluation and testing. It develops the mechanisms for updates as well as automatic
checks for the safety of a planned update. The research impacts information-based
drug discovery and development, and healthcare decision support systems.